RET Site: Resilient Communities through Engineering Infrastructure

The RET Site: Resilient Communities Through Engineering Infrastructure in the School of Civil and Environmental Engineering at the University of Connecticut (UConn) will host ten teachers each year to explore research topics that focus on the technology, processes and modeling that help maintain and improve public infrastructure. These teachers will be exposed to cutting-edge research in creating resilient water, energy and transportation infrastructure that aims to maintain and improve public health, safety, and improve quality of life. They will learn how engineers engage communities to address the full range of needs and interests in engineering design. Through this experience, teams of teachers, faculty, graduate students and undergraduate students will collaborate to develop and deliver curriculum to grade 6-12 classrooms that help expose students to new ideas, develop engineering skillsets, and encourage any student that shows an interest that community-focused engineering is a pathway they can pursue.

The RET Site: Resilient Communities Through Engineering Infrastructure in the School of Civil and Environmental Engineering at the University of Connecticut (UConn) has three specific objectives, 1) To develop teachers’ knowledge and awareness of infrastructure-relevant engineering concepts, which they can introduce into their classrooms; 2) To develop teachers’ understanding and insight into how engineers collaborate with stakeholders and communities to improve infrastructure and strengthen community resilience; and 3) To develop ongoing partnerships with grade 6-12 teachers and schools that will enrich experiences for undergraduate students as well as junior high and secondary school students. Ten teachers are expected to spend six weeks in this program each year, for a total of 30 teachers over three years. In addition, 6 faculty and 5 graduate students each summer, and at least 10 engineering senior design teams of 4 students each during the academic year will be involved in the development and implementation of the curriculum. The RET Site empowers grade 6-12 teachers to effectively engage students in civil and environmental engineering. The program establishes relationships among teachers across schools and districts, and with faculty and university students to promote distribution of information and lesson plans, thereby promoting the program beyond the cohort of participants. Best practices and lesson plans will be shared with the larger STEM community through conference presentations, articles, reports and by publishing relevant lesson plans online. The RET Site directly contributes to national priorities for strong engineering education and addressing grand challenges in engineering that prepares students to meet the complex challenges in sustainable and resilient infrastructure needs confronting our communities.